Holomorphic Curves in Symplectic and Complex Geometry

Abstract

Award: DMS-0505778
Principal Investigator: Richard Hind

This proposal will conduct research in symplectic and complex
geometry. Topics in symplectic geometry aim to both apply and
extend the ideas and theorems of the Symplectic Field Theory as
developed by Eliashberg, Givental and Hofer. The main application
so far is to the classification up to Hamiltonian diffeomorphism
of Lagrangian spheres in symplectic 4-manifolds, there is ongoing
work aimed at establishing similar results for higher genus
surfaces. In symplectic topology such classification results at
present only exist in dimension 4. Nevertheless the proposal will
also strive to increase our understanding of higher dimensions.
One route to such an understanding is provided by work of
Donaldson showing that, after a blowing-up operation, every
integral symplectic 6-manifold can be realized as a Lefschetz
fibration in which the fibers are symplectic 4-manifolds and the
vanishing cycles Lagrangian spheres. Regarding the underlying
theory, Symplectic Field Theory allows us to split a symplectic
manifold along a hypersurface and apply holomorphic curve methods
to study each part separately. This is a very powerful idea, the
results above rely heavily upon it, but it is fundamentally
limited in that it may not be possible to split a symplectic
manifold along such hypersurfaces into pieces which are
sufficiently small to be completely understood. Therefore the
proposal will also work to generalize the Symplectic Field Theory
to allow more general splittings, for example along hypersurfaces
with corners. In complex geometry the proposal plans to continue
work of Burns and Hind studying complex manifolds canonically
associated to real analytic Riemannian manifolds, focussing
especially on the case when the Riemannian manifold is a
symmetric space of the noncompact type. Then we have a class of
complex manifolds which gives a nice generalization of the
classical bounded symmetric domains.

Symplectic geometry originated as the modern mathematical
language of classical and quantum mechanics. This proposal will
address basic mathematical problems in the area, in particular it
will apply and extend the powerful new techniques known as
Symplectic Field Theory. The Symplectic Field Theory is an
exciting new development which promises to help us move rapidly
towards our goal of describing the global nature of symplectic
manifolds and Hamiltonian systems. As the problems are global in
nature often they initially appear intractible, but the new
methods offer the prospect of breaking down our analysis into
more manageable local pieces. Eventually it should be possible to
develop algorithms to solve typical problems in symplectic
geometry. This will have immediate applications to theoretical
physics and dynamical systems.